Pathways of the Math & Sciences Summer Program

The State University of New York College at Fredonia sponsors the "Pathways of Mathematics and Sciences Summer Project" for minority students annually from three target schools. This five-week commuter project provides unique learning experiences in mathematics and science to encourage students to continue the study of math and science, to realize the importance of these subjects in their everyday lives and appreciate that both are interesting and enjoyable. The summer project has three modules: I) Knowing the Coursework; II) Knowing Yourself; and III) Knowing the School System. The mathematics content includes science content inlcudes ecology, environmental geology and mineralogy. Instructional activities involve hands-on, independent study, intensive lab use, work stations, and field trips. Problem solving, communication, reasoning, and connection provide students with stimulating conditions for learning mathematics and science. Community and institutional support are strong.